Dynamic Modeling Methods for the Design of High Performance Machines

High performance, high productivity machines often show excessive vibration and noise, low reliability and life, and poor precision. New analytical methods for their design are required to improve their performance. This project deals with the development of more complete, computationally practical, dynamic analysis methods for the design of such machines. The research addresses machine spatial dynamics, the dynamics effects of clearances in connections, the dynamics effects of distributed mass and compliance of machine links, the dynamics effects of supporting structures and enclosures, the effects of fastening methods used in fabrication, and control systems and actuators. The analytical models will be tested experimentally as they are developed.